Collaborative Research: Mechanism of Enhanced Biological Phosphorus Removal

0332136 McMahon A broad objective of the proposed work is to determine how microbialcommunity structure and function is linked to successful EBPR process performance. To achieve this objective, the key organisms whose presence is necessary for efficient EBPR operation must be studied. In particular, it is necessary to investigate how these organisms regulate and control the genes and gene products involved in EBPR metabolism. Specific goals of this work are to:
oClone the genes involved in PHA and glycogen cycling directly from mixed
communities in PAO-enriched sludges;
oElucidate the mechanisms by which carbon and P cycling occurs in PAOs;
oDevelop an immunochemical method to detect polyP metabolism in sludge;
oIntegrate observations and recommend potential control strategies for full-scale
EPBR systems.